MIE: Model Institution for Excellence Planning Initiative at Spelman College

9354143 Falcorner Spelman College will undertake a six-month planning effort to devise a long-range plan for the development of an excellent science, engineering and mathematics (SEM) education and research program. The planning effort will focus on four major areas. These areas include: 1) the Academic Program; 2) Student Development; 3) Research & Faculty Development; and 4) the Infrastructure. The major objectives of the planning period will be to: 1. Review and revise procedures for assessing the quality of SEM programs, identifying specific strengths and weaknesses. 2. Determine activities and resources needed to elevate SEM programs to a higher level of excellence. 3. Analyze strengths and weaknesses related to recruitment and retention, and determine activities to enhance these areas. 4. Analyze research capabilities and determine research- related needs, particularly with respect to the training of students. 5. Determine tracking procedures and infrastructure mechanisms needed to ensure adequate feedback on SEM graduates, including enrollment in graduate programs, progress in graduate school and employment data. 6. Assess and develop appropriate mechanisms to enhance and facilitate cooperative endeavors with industry, government and graduate institutions. 7. Determine components of an effective infrastructure that will support current enhancements and facilitate future growth.